Acquisition of Equipment for Paleomagnetic Research

9421345 Tarduno This award provides one-half the funding required to obtain laboratory equipment for paleomagnetic research, including a superconducting magnetometer, a thermal demagnetizer, an alternating field demagnetizer, and a magnetic susceptibility bridge. This instrument system is to be installed and operated in the Department of Earth and Environmental Sciences at the University of Rochester. The University is committed to providing the remaining funds necessary for the acquisition of the equipment. The equipment will be used primarily in the research of the Principal Investigator and his qtudents in three general areas: (1) Tectonics-geodynamics, (2) Magnetostratigraphy and geomagnetic reversal chronology, (3) environmental magnetism and the fidelity of the geomagnetic record. ***